U.S.-Uruguay Planning Visit for an International Workshop on the Development of the Las Americas Network

9909191
de Velasco

This Americas Program award will support Dr. Guillermo Vasquez de Velasco, Texas A&M, to travel to Montevideo, Uruguay to prepare a proposal for a Joint Workshop of the Americas Network. During this visit, Dr. de Velasco will conduct a regional coordination meeting leading to the production of the proposal. This meeting will take place in the context of the third annual meeting of the Iberoamerican Society for Digital Graphics. The objective of the network is to promote collaborative activities at inter-continental level. In support of such objective the network offers a Web Site that provides hyper-linkage to the Web Site of all member institutions of the network, reference to on-going collaborative project, and a refereed electronic publication for the dissemination of scholarly work. In addition, development of distance education media and the possibility of establishing a collaborative curriculum will be discussed.

Other small scale collaborative initiatives in which two or three institutions may participate will also be discussed.
***